Cores, regularity and principal ideal theorems

The core of an ideal in a commutative ring encodes information about all
possible reductions of the ideal. It also has a close connection to
Briancon-Skoda type theorems and to a conjecture by Kawamata about
sections of line bundles. The proposer intends to further explore this
interplay by studying the relation between cores and adjoints or
multiplier ideals. Having worked on a formula for the core in
equicharacteristic zero, he wishes to obtain a similar explicit expression
in positive characteristic, where the shape of the core is markedly
different. Likewise he would like to find a combinatorial description for
the core of monomial ideals. The investigator plans to continue his work
on blowup algebras of ideals, most notably of zero-dimensional ideals in
regular local rings. He asks whether the quasi-Gorenstein property of the
extended Rees algebra implies the Gorensteinness of the associated graded
ring. He also suggests that the normality or Cohen-Macaulayness of the
special fiber ring of a Gorenstein ideal may force the ideal to be a
complete intersection. On a more computational note, he addresses the
problem of constructing the integral closure of algebras, in particular of
Rees algebras. Passing to the integral closure of the Rees algebra of an
ideal is the first step towards resolution of singularities and the only
known general method for computing the integral closure of the ideal. The
proposer wishes to estimate the complexity of this process by finding bounds
on the number of generators of the integral closure, the degrees of the
generators and the number of steps required in the computation. As another
measure of complexity he plans to study the Castelnuovo-Mumford regularity
of powers and symmetric powers of homogeneous ideals having dimension at
most one. He expects that estimates on the regularity do not only persist
when the ideal is raised to powers, but that they actually improve. Similar
improved bounds for the regularity of symmetric powers would help finding
the equations of Rees algebras and thereby lead to efficient algorithms in
elimination theory. The proposer also intends to continue his work on
generalized principal ideal theorems. The goal is to bound the codimension
and prove connectedness properties for degeneracy loci of maps of modules
that are not necessarily free; here one has to assume that the maps are not
`too generic'. The investigator proposes a weak version of this condition
by introducing a notion of ampleness for modules over local rings. He
hopes to prove principal ideal theorems that only require the weaker
assumption, thus generalizing the known results in both local algebra and
projective geometry.

The investigator works in Commutative Algebra, an area concerned with the
qualitative study of systems of polynomial equations in several variables.
Such systems arise in numerous applications outside of mathematics. Over
the past two decades commutative algebraists have become increasingly
interested in computational aspects, thereby emphasizing connections to
applied areas such as computer algebra, robotics, cryptography and coding
theory. This investigator's research too has a strong computational
component.
Part of the project involving the collaboration with mathematicians in Brazil is funded by the NSF
Office of International Science and Engineering